CAREER: Prediction and Design of Specific Protein-DNA Interactions

9733410 Shin Protein recognition of specific sequences of duplex DNA is an essential step in numerous biological processes. Understanding the determinants of this binding specificity is one of the central challenges in the study of protein-DNA interactions. Examination of how a dimer of alpha-helices interacts with short DNA duplexes promises to be a tractable, informative strategy to dissect the complex mechanism employed by full proteins. To this end, an alpha-helical protein dimer has been synthesized and attached to a column that is utilized to select specific binding sites from a random DNA library. Quantitative information about selected protein-DNA complexes will be gained through a multi-pronged approach involving thermodynamic, kinetic, and structural analyses in conjunction with computational modeling. This quantitative information about alpha-helix recognition of the major groove will provide a tool for prediction and design of bZIP-based proteins that bind to specific DNA sequences. Ultimately, the goal is to achieve a deeper quantitative understanding of the energetics of bZIP-DNA complexation, and to propel further research into the global field of understanding specificity in protein-DNA interactions, especially those involving larger, more complicated systems.